A Planning Grant Proposal for Transitioning America's Veterans to Science, Technology, Engineering and Mathematics (STEM) Academic Programs

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)

This engineering education award to Mississippi State University will develop innovative new graduate and undergraduate degree programs in engineering that are customized to the needs and strengths of veterans. A particular emphasis will be including research experiences and industrial internships within the degree program. The results will also be presented on the web, at technical conferences and published in professional journals. The project is expected to assist the transition of veterans to civilian life and to enhance the number of students who complete engineering degrees and are ready to fill engineering jobs or start new high tech businesses.